Frost Susceptibility of Concrete in Near-Saturated States

The objective of this project is to present a basic understanding of the freezing mechanism of pore water and by this knowledge establish criteria of assessing the freeze-thaw durability of concrete. The damage to concrete depends upon the internal cyclic stresses developed during freezing and thawing because of the flow of water and ice.